A Study of the Impact of 3D Haptic-augmented Learning Tools on Dynamics Course

Engineering - Other (59)

This project focuses on significantly improving the understanding of system dynamics concepts through using a 3D haptic-augmented virtual environment to create innovative learning materials and tools for use in the Dynamics course. The targeted goals of the project include: 1) researching the efficacy of using 3D haptic augmented virtual environments to supplement instruction in fundamental engineering courses; 2) researching the various difficulties encountered by students when learning the many abstract concepts presented in an engineering dynamics course; and 3) improving faculty expertise in using various teaching strategies and tools that may enhance engineering course instruction. Students from various engineering disciplines are benefiting from this new curriculum enhancement.